Information Theory-Based Measurement of Software Designs

9803853 Information Theory-Based Measurement of Software Designs is a research project that is defining and validating a new generation of software design metrics, based on information theory, which in turn, will facilitate a new level of cost- effective improvement to software quality. This project is developing metrics of cohesion and coupling on abstractions of software that are created during high-level design, so that quality problems may be detected early in the life cycle. Since many design abstractions are represented by graphs, metrics of graph attributes will likely find broad application. Many traditional software metrics count features, as if all items were equally important in the design process. Information theory is an alternative approach that focuses on the amount of information in an attribute, rather than a count. This project is establishing a new generation of information theory-based software design metrics by definition and empirical validation of metrics for cohesion and coupling. Collaboration with a large telecommunications equipment manufacturer is providing the basis for credible case studies, where the system studied is being developed by a group of professionals in an industrial environment, and is large enough to be comparable to other industry projects.***